Analysis of Topological Singularities and Their Dynamics

Fang-Hua Lin, NYU Courant Institute. DMS-0201443

Abstract:

The first part of this proposal is to study the dynamics and the
stability of topological singularities in several concrete cases including
:magnetic vortices in the Landau-Lefschitz equations(Schrodinger and wave
maps coupled with magnetic fields),vortices and vortex rings in the trapped
dilute Bose-Einstein condensates(certain nonlinear Schrodinger systems
coupled with potentials).The second part of the proposal is concerned with
topological singularities of Sobolev mappings.We shall examine the effects
of singularities on the denisity of smooth maps,the topology of mapping
spaces,the regularity and singularity of various energy minimizers.Of
particular interest is the global structures of singular sets and asymptotic
behavior of energy minimizers near such topological singularities.
Many interesting natural phenomena contain some sort singular behavior
and they are often manifiested through energy concentrations.Singularities
of solutions of partial differential equations which describe these
phenomena are,therefore,an important part of facets.We propose here to
establish a rigourous mathematical theory concerning probabilly a most
important class of such singularities ,topological singularity.Topological
singularities arise in many physical problems and have been an important
subject of much study over past many years.Among known examples are
magnetic bubbles in a fereomagnetic(or anti-ferromagnetic)continuum,vortices
in Bose-Einstein condensates and superconductivity,topological defects in
liquid crystals,as well as skyrminors,monopoles and instantons which are
particle like solutions in generic models of high energy physics.These
singularities not only carry definite topological informations but also
quantified amount of energies.Because of this they are often more
observable and stable energitically and dynamically.Thus a rigourous
mathematical theory for such singularity would be not only mathematically
challenging and interesting but also of fundamental importance in sciences.